Experimental Nuclear Science

We propose to study low-energy nuclear reactions, most related to nuclear
astrophysics, using short-lived secondary beams of 6-He, 8-Li, 7-Be, 8-B,
and other nuclei. These will be used to study nuclear reactions related to
the apparent deficit of solar neutrinos, and the "missing mass" problem in
the Universe. The experiments will utilize a unique UM-developed apparatus
consisting of two large superconducting magnets and will continue further
technical developments of the device, which also has applications in other
fields such as nuclear medicine. Additional related experimental work, as
funding permits, will be done at the National Superconducting Cyclotron
Laboratory (E. Lansing, MI), and the Texas AM Cyclotron Laboratory.